Mathematical Sciences: Partial Differential Equations

This project will study boundary value problems for wave equations, spectral properties of Schrodinger operators, pseudodifferential operators in connection with nonlinear partial differential equations, and index theories. The techniques to be used incorporate noncommutative harmonic analysis, spectral theory, and K-homology. The questions to be analysed have been motivated both by mathematical and physical problems. Results from this project will in turn help our understanding of areas such as wave propagation and quantum mechanics.